Critical Path Computing

Critical path prediction is a processor architecture technique that uses
the past behavior of instructions in the instruction stream to predict which
fetched instructions will be on the critical path; that is, which
instructions will have a significant impact on processor performance, and
which will not. This information can then be used to guide the selective
application of a variety of processor optimizations.

Modern processors remove most artificial constraints on execution
throughput. Therefore, the bottleneck for many workloads on current
processors is the true dependences in the code. Chains of dependent
instructions constrain the overall throughput of the machine, often leaving
aggressive processor technology highly underutilized. These chains of
dependent instructions constitute the critical performance path, or
critical path (CP), though the code.

The performance of the processor is thus determined by the speed at
which it executes the instructions along this critical path. In our
efforts to get the maximum performance from the processor, it is no
longer reasonable to treat all instructions the same. If we can know
which instructions are critical to performance, we can accelerate
their execution, possibly at the expense of instructions not on the
critical path.

This research will attempt to identify these critical instructions
dynamically in hardware. We call this critical path prediction. This
prediction is based on the behavior of previous invocations of the
instruction in the pipeline. This prediction will enable the processor to
make better decisions about where to apply certain policies and
optimizations. A variety of critical path predictors will be examined.

In many cases, critical path prediction will enable more effective
application of other resources or optimizations. Possible applications of
critical path prediction include guiding value prediction, instruction
reuse, instruction issue priority, instruction scheduling on a clustered
architecture, speculation control on a power-constrained processor,
arbitration between instructions or threads on a multithreaded
architecture, or to guide the spawning of speculative threads in a
speculative multithreaded processor.